Along-slope Current Generation by Obliquely Incident Internal Waves

9906941

Slinn

This work will use direct numerical simulation to examine the
processes by which obliquely incident internal waves reflect from a
sloping boundary, generate currents flowing along the slope, and
interact with these currents. These processes are important in the
production of mixing near boundaries and hence have an effect on the
ocean that extends far beyond the immediate vicinity of the boundary. The details of boundary mixing are difficult to observe in the field and in the lab. Both monochromatic and polychromatic incident wave fields will be considered. Key questions to be investigated are the time-dependent behavior of the strong along-slope currents generated by waves near the critical frequency and the way in which the spatial distribution of regions of strong mixing evolves.